SBIR Phase I: Membrane Reformer for Proton Exchange Membrane (PEM) Fuel Cells: Novel Application of Deposition Processes for Low-Cost Hydrogen Separation Membranes

This Small Business Innovative Research (SBIR) Phase I project will focus on the development of economical processes to produce a highly selective, long life, low-cost hydrogen separation membrane for the purification of a fuel stream from a steam reforming fuel processor. Recently developed processes for rapid direct-write deposition processes will be applied to produce thin (<10microns) palladium alloy membranes as a primary cost reduction step. Preliminary trials with these novel processes on porous metal show encouraging results in terms of deposition of a uniform membrane, homogeneous alloy compositions and stability to thermal cycling.

Producing pure hydrogen from hydrocarbon based fuels on-site and on-demand is critical to enabling the burgeoning fuel cell industry. At present, distribution costs for hydrogen can represent more than 99 percent of the total cost of hydrogen. To meet and/or surpass cost projections for 2005 and beyond in the stationary, portable and automotive fuel cell markets, it will require innovative concepts for reducing both high volume manufacturing and material costs. Estimates project that costs for fuel processing systems must be reduced 3x - 6x by the year 2005 to meet cost targets of $1,500 per kilowatt and allow the fuel cell industry to become a viable energy alternative.